The Eighth Workshop on Decadal Climate Variability: Decadal Predictability and Prediction--Are We Ready?; Saint Michaels, Maryland; October 12-15, 2009

This is a support to co-sponsor the workshop "the Eighth Workshop on Decadal Climate Variability: Decadal Predictability and Prediction: Are We Ready?" which was held in St. Michaels, Maryland from 19 to 21 October 2009. The goal of this workshop is to provide decadal climate variability researchers a regular and frequent forum to discuss their latest research results with their colleagues.

This workshop provides support of travel and other expenses for several graduate students and post-docs.